U.S.-China Cooperative Research: Growth Kinetics and Morphological Stability of Crystals

This is a two-year collaborative research project between Dr. Franz Rosenberger, University of Alabama and Professor Ming Nai-Ben, Nanjing University to study the conditions for achieving morphological stability for the growth of high quality crystals. This project studies an important field of physics. The U.S. group is known for its work on the transport and kinetics concepts in crystal growth while the Chinese team is strong in in-situ crystallographic characterization and has the ability to identify growth mechanisms and defects. Both areas are needed for understanding the processes and conditions of crystals growth. The study is complementary in nature and can advance this field of science in both countries.